Control Issues in Asynchronous Parallel Knowledge-Based AI Programs

9321324 Lesser Control, the intelligent selection of actions to execute, is critical to the performance of knowledge-based systems such a planners job shop schedulers, and speech understanding systems. This is particularly true for parallel systems in which the controlling agent has the additional goals of maximizing the utilization of parallel resources. The proposed research studies the issues of control in parallel knowledge-based systems through the development of a theory of control based o an analysis of task interactions and the influence of the environment. The theoretical approach to control issues is based on the observation that control is a knowledge-based on an understanding of the interactions between the problem-solving process, the problem domain, and the specific environment in which a problem-solving episode takes place. This effort will be an extension of previous efforts to develop a formal model of how the structure of a domain influences ad constrains the choice of methods used to develop solutions within that domain and in developing stochastic models of environments. These efforts will be extended towards modeling effects that are particularly significant in parallel computations. Specifically, the nature of task interactions will be explored.